The Introduction of a Graphical Component into the Sophomore Differential Equations Course

This project will support the expansion and modernization of an undergraduate mathematics laboratory for the sophomore differential equations course at the Georgia Institute of Technology. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the stated goal of improving "the quality of the undergraduate curriculum by supporting projects to develop new or improved instrument-based undergraduate laboratory and/or field courses in science, mathematics, or engineering." The faculty will introduce both computational and geometrical components into this course by 1) expanding and modernizing the existing facility, 2) developing course materials and notes that will incorporate these new components into the course, and 3) building a collection of physical models which can be used to convey an understanding of some of the applications of ordinary differential equations.